Collaborative Research: CyberTraining: Implementation: Small: Preparing a Strong Workforce to Secure FutureG Cyberinfrastructure

This project addresses critical workforce and expertise gaps in cybersecurity for Future Generation (FutureG) wireless systems, including sixth-generation and beyond cellular networks, advanced wireless local-area networks, non-terrestrial networks, and integrated sensing and communication platforms. These technologies underpin emerging cyberinfrastructure and support applications in distributed artificial intelligence, autonomous systems, intelligent transportation, healthcare, industrial automation, and national defense. The project develops openly accessible educational resources that strengthen cybersecurity education and prepare students to contribute to secure and resilient FutureG systems.

The project creates and evaluates four integrated educational modules that combine foundational concepts with hands-on learning. The modules introduce the principles and applications of FutureG networks, examine security mechanisms for artificial intelligence-enabled wireless communications, investigate defenses for artificial intelligence-driven wireless sensing systems, and explore emerging attack surfaces and security challenges in integrated sensing and communication technologies. The project also modernizes existing network security courses, develops new curriculum content focused on FutureG security, and delivers virtual, hybrid, and in-person training activities that broaden access to advanced cybersecurity education. The project advances education at the intersection of wireless systems, cybersecurity, and artificial intelligence while establishing a scalable framework for FutureG workforce development. Educational materials, laboratory exercises, and training activities will be disseminated broadly through courses, workshops, online resources, and summer research programs. The project will help prepare a diverse and highly skilled workforce capable of developing, securing, and sustaining the next generation of wireless cyberinfrastructure.